TC: Large: Collaborative Research: 3Dsec: Trustworthy System Security through 3-D Integrated Hardware

While hardware resources for computation and data storage are now abundant,
economic factors prevent specialized hardware security mechanisms from being
integrated into commodity parts. System owners are caught between the need to exploit
cheap, fast, commodity microprocessors and the need to ensure that critical security
properties hold.

This research will explore a novel way to augment commodity hardware after fabrication
to enhance secure operation. The basic approach is to add a separate silicon layer,
housing select security features, onto an existing integrated circuit. This 3-D Integration
decouples the function and economics of security policy enforcement from the
underlying computing hardware. As a result, security enhancements are manufacturing
options applicable only to those systems that require them, which resolves the
economic quandary. We plan to identify a minimal and realizable set of circuit-level
security capabilities enabled by this approach, which can be judiciously controlled by
the software layers. This will significantly assist in reducing both the software complexity
often associated with security mechanisms and system vulnerabilities.
This research introduces a fundamentally new method to incorporate security
mechanisms into hardware and has the potential to significantly shift the economics of
trustworthy systems. A broader impact will result through collaborative and educational
activities. Graduate and undergraduate student research associates will transfer
knowledge to future teachers, researchers and Information Assurance professionals;
and project publications will provide direct technical transfer to the embedded-systems
and hardware-design communities.